Photodissociation Dynamics: Triatomics and Triple Whammies

The broad goal of this project supported by the Experimental Physical Chemistry Program is to understand better the phenomenon of photodissociation. Professor Houston and his colleagues emphasize the study of vector correlations among various photodissociation products, using these correlations to extract detailed information on the photodissociation process. Using tunable vacuum ultraviolet laser-induced fluorescence and resonantly enhanced multiphoton ionization techniques to detect photodissociation products, Houston is studying both triatomic molecules most amenable to insightful comparison with theoretical treatments and larger systems, particularly events producing three photofragments. Vector correlations are revealed through Doppler profile measurements on state-selected fragments; state-selected three-dimensional velocity profiles are extracted from an analysis of a two-dimensional projection of the full velocity profile.